Proposal for NSF funding to support Internaltional Workshop on "Sterile Neutrinos" at Virginia Tech September 26-28, 2011

This award will provide participant support for early career scientists and graduate students to participate in the "Sterile Neutrinos at the Crossroads" International Workshop at Virginia Tech on September 26-28, 2011. The workshop will include plenary session overview talks on nuclear theory (reactor fluxes, nucleosynthesis) and experiment (reactor experiments, flux measurements, LSND/Karmen, MiniBooNE), cosmology (WMAP/Planck) and neutrino phenomenology.

For Broader Impacts, it has a particular focus on early career scientists and graduate students. Contributions in the form of posters, especially by students, are strongly encouraged. The workshop will feature a tour of the Kimballton Underground Research facility.